Young Scholars Program for Molecular Biology and Related Areas

*** 9553494 Fishman The City College of the City University of New York seeks to initiate enrichment experiences for an eight-week, summer commuter, Young Lscholars project in chemistry and molecular biology for 30 students entering grade 12. Each student will participate in a summer research team, with his/her own problem integrated into the larger disciplinary focus of the group. The research will be in tandem with a strong program of discussions, seminars, andfield techniques and skills in scientific writing and oral communication will be convered in a series of sessions led lby the program staff and other City College faculty. ***